Dissertation Research: Adaptation and Reproduction of France Artisanal Food Producers

This project supports the research of a graduate student in cultural anthropology who will study the work of family artisans who make food specialty items in southwest France. The project will study how such family firms reproduce their economic activity in the context of a post-industrial society. These producers are based in local household or family settings for production, yet have organized themselves into guilds to represent their interests in the wider society. Using participant observation and in-depth life history interviews the student will analyze how small family-based producers have been able to reaffirm their autonomy and mobilize their constituency in a context that assumed their disappearance or marginality. This research is important because family owned business has historically been the key to community development for defined groups. Understanding how one such well-defined group has asserted and defended its interests can help us understand how groups in general can prosper, and so design policies that aid groups that have historically not been able to succeed in family owned business.